CISE Educational Innovation Program: Mainstreaming Parallel and Distributed Computing in the Computer Science Undergraduate Curriculum

9634470 Ranka, Sanjay, Ritter, Gerhard University of Florida CISE Educational Innovation: Mainstreaming Parallel and Distributed Computing in the Computer Science Undergraduate Curriculum This CISE Educational Innovation project incorporates the latest research in parallel and distributed computing into core courses in the undergraduate computer science curriculum. It introduces students to important concepts in these areas and demonstrates both theoretically and practically their usefulness in a wide variety of application areas. The basic parallel and distributed computing concepts are integrated into several existing courses including those on simulation, computer vision, operating systems, numerical analysis and databases. Investigators from Research Centers at the University, including the centers on Database Systems, Computer Vision and Visualization, Software Engineering, and Parallel Computing are involved in this Educational Innovation Project.